NSF Minority Postdoctoral Research Fellowship for FY 1997

Award Abstract Fellow: Felipe N. Soto-Adames Proposal number: DBI 9707848 This action funds an NSF Minority Postdoctoral Research Fellowship for 1997. This fellowship supports research and training in the area of systematic biology. The research and training plan is entitled " Molecular markers and patterns of speciation in soil inhabiting microarthropods." The organisms being studied comprise the Lepidocyrtus-Pseudosinella genera complex (Hexapoda: Collembola) in greater Puerto Rico. Collembola are the most diverse of the primitive, wingless hexapods and important to soil biology. Diversity and patterns of speciation are being determined with the use of molecular tools and geographical distribution to gain insight into the factors contributing to the evolutionary success of this important and under-studied group of organisms.